Supernovae and Astrophysical Gas Dynamics

9314724 Chevalier The study of supernovae has progressed to the point where these events are valuable probes of stellar evolution and high energy physics. Observations at X-ray, radio, optical and ultraviolet wavelengths for supernova 1993J will be used to model the interaction of the shock from the exploding star with circumstellar gas. Departures from spherical symmetry are expected to be important and will be taken into account. The effect of magnetic fields on the morphology of planetary nebulae will also be investigated. ***